Purchase of a Rotating Anode Single Crystal X-Ray Diffraction System

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at Clemson University purchase an automated single-crystal diffractometer. The instrument will enhance research programs which are pursuing the development of new inorganic materials, such as multifunctional fluorinated ionomers and their lamellar and zeolite-like metal derivatives, soluble zintl anions, mixed valence metallopolymers, and liquid clathrates and host molecules for inclusion compounds. %%% Single crystal x-ray crystallography is the most powerful analytical method for structures determination of solids. In synthetic inorganic, organic, bioinorganic and organometallic chemistry, single crystal x-ray diffraction is an invaluable tool to characterize molecular structure. The information gained from the knowledge of the molecular composition and structure helps to develop new reactions of potentially general interest in catalysis or synthesis.